SBIR Phase I:(RAPID) Hazardous Hydrocarbon Monitoring

This project will provide currently uncollectable
temporal contamination measurements of hydrocarbons in response to the Deepwater
Horizon oil spill. The US EPA measures an array of hydrocarbons, providing feedback
to residents after a seven day delay. These compounds, known together as BTEX
(benzene, toluene, ethylbenzene, and total xylenes), greatly increase the overall
potency of petroleum, amplifying the effect of small contamination levels.